Complex Cobordisom in Homotopy Theory; Its Impact and Prospects

In algebraic topology, generalized cohomology theories have become a
powerful tool for translating topological problems into algebraic
problems, where one can expect to do calculations. The more algebraic structure
one can extract, the better. The last 30 years or so have seen extensive
development of the family of complex-oriented cohomology theories, which
allow one to tap into the existing rich algebraic machinery of formal
group laws. Applications include many profound results in topology.
However, much of the work has taken place at a rather small number of
centers, and the proposed 4-day conference is intended to disseminate
the present state of the field to a wider audience, including publication
of the proceedings of the conference.

Topology is the study of those properties of geometric objects such as
spheres, tori and other surfaces, and higher-dimensional analogues, that
do not depend on such concepts as distance and angle. A stock example
is that a donut is treated as equivalent to a coffee mug, as one can be
deformed into the other, without tearing or gluing, if they are plastic
enough, but not equivalent to a cup without a handle, as the hole will
not go away. Algebraic topology seeks to convert topological problems
into algebraic problems that one can solve. One powerful modern tool
is the concept of a complex-oriented cohomology theory, which is the
focus of the proposed 4-day conference. This conference is intended to
disseminate the present state of the field and its results more widely.